NNA Track 2: Collaborative Research: Adaptable Microgrids in Arctic Communities

Navigating the New Arctic (NNA) is one of NSF's 10 Big Ideas. NNA projects address convergence scientific challenges in the rapidly changing Arctic. The Arctic research is needed to inform the economy, security and resilience of the Nation, the larger region and the globe. NNA empowers new research partnerships from local to international scales, diversifies the next generation of Arctic researchers, enhances efforts in formal and informal education, and integrates the co-production of knowledge where appropriate. This award fulfills part of that aim by supporting planning activities with clear potential to develop novel, leading edge research ideas and approaches to address NNA goals. It integrates aspects of the built environment and social systems to addresses important societal challenges, builds significant educational opportunities, and engages with local communities.

Arctic communities currently face environmental and economic changes that threaten their way of life. New ways of designing and building electric power systems might help these communities meet these challenges now and in the future. The goal of this research is to address these challenges by bringing together researchers, rural Alaska energy experts, and local people living in the Arctic. These groups are identifying needs and design research on less expensive, portable, and renewable energy-based electric systems to address changing conditions. The “adaptable microgrid” designs from this work have potential for application in other remote places around the world. The design concepts could also help people build better water and sanitation systems, thus broadening the impact of this project.

Community-researcher partnerships are central to the development of feasible and socially-accepted models for microgrid design alternatives. The goal of this planning grant is to create these partnerships and build trust with Arctic community members and other rural Alaska energy stakeholders. This is being achieved through the following activities: (1) Formation of a research advisory committee composed of people from regional Alaska Native organizations, regional electric utilities, Alaska-wide renewable energy groups, and the Alaska Native Science and Engineering Program (ANSEP) at the University of Alaska Anchorage; (2) Development of two advisory committee workshops; (3) Convening meetings of the research team with Arctic communities to build relationships and gather initial information; and (4) Development of relationships with Arctic community schools and ANSEP for K-12 education and continuing participatory science projects. These activities are laying the foundation for a research agenda focused on community values on energy use, economic tradeoffs in the design and relocation of infrastructure, demand for electricity by integrated water and sewer systems, and data inputs for optimization modeling. The model output is providing communities with options for building adaptable infrastructure that meets their needs.
.